IPY: Pole to Pole

This project will produce a multi-part radio project including eight half-hour documentaries, 40-50 short radio features, an audio clearinghouse and a website on scientific research in the Polar Regions. The content of the programs support the goals of IPY. The project will be produced with four international radio partners: the science units of The Australian Broadcasting Co., the BBC World Service, Radio Deustche-Welle and Radio New Zealand. These international collaborators will look at issues such as the influence of conditions in Polar Regions on global climatic change, how animals adapt to rapid environmental change, survival in extreme environments and processes of change among native people in the Polar regions. The programs will reach a large audience in the United States as well as internationally through the collaborating partners. The clearinghouse/website will be designed to provide organized learning resources and an audio archive of the project's radio programs and archival interviews and sounds for use by both the general public and professional audiences. There will be both formative and summative evaluation of the programs and website.